SBIR Phase I: Low-Density Logical Qubit Parity Coding

The broader impact of this Small Business Innovation Research (SBIR) Phase I project will be to accelerate the adoption of error correction technologies in the quantum computing industry. It is widely held that quantum error correction will be critical to realize the potential of universal quantum computing. An error-corrected quantum computer holds promise for making transformational discoveries in science and engineering that will have broad impact across traditional technology sectors. By developing resource-efficient quantum error correction design and decoding software tools, this Phase I project aims to hasten the era of error-corrected quantum computing.

This Small Business Innovation Research (SBIR) Phase I project will advance a new method for error syndrome extraction from a register of data qubits during the execution of an error-corrected quantum algorithm. In contrast to the standard approach to syndrome extraction, where each quantum codeword is treated independently, this new approach extracts error information from the entire quantum computer collectively. The algorithmic and cost advantage of the proposed approach is a reduction in the number of extra qubits required for error syndrome extraction. This project will focus on reducing the density of the quantum circuits used for syndrome extraction according to the new approach. Low-density quantum circuits are critical for robust quantum error correction since syndrome extraction is mediated by two-qubit entangling gates, which often have error rates higher than idling or memory errors occurring in the data qubits. Another objective of this Phase I project is to design low-density error correcting codes that promote locality in syndrome extraction. Local syndrome extraction is important for error correction in quantum processors that support limited connectivity between qubits. A final objective is to benchmark the proposed constructions and algorithms on simulated data and perform proof-of-concept experimental validation on cloud-based quantum computers.